Coordinated Global Time-Series Photometry of Variable Stars: The Whole Earth Telescope

ABSTRACT

Kawaler, Steven
AST-9876655

The Whole Earth Telescope (WET) project coordinates over a dozen observatories around the world in observational campaigns to observe white dwarf stars. During a given international campaign, target stars are observed around-the-clock for several weeks. From these continuous records of photometric variability, many different frequencies of oscillation can be detected. Each is related directly to a given depth, opacity, density, and ionization state in the stellar interior. Analogous to earthquake studies of the Earth's interior, asteroseismology provides one of the few observational verifications of theoretical models of stellar interiors. Detailed analysis of the frequencies observed yields high precision cooling rates, composition and masses that are unachievable by any other means. This technique is being extended include hot subdwarfs, d Scuti variables, Ap stars and other unstable objects in late stages of evolution. The operational center of WET is being moved from Texas to Iowa.

Funding for this project was provided by the NSF Stellar Astronomy & Astrophysics Program (SAA) and Division of International Programs (INT).